X-Ray Nanolithography (REU and Women, Minority and Handicapped Engineering Research Assistants)

This extremely innovative research proposes to develop an integrated system for X-ray lithography for features less than 100nm in width. This is a factor of 10 smaller than currently obtainable on a reproducible basis. This system concept involves both the development of an appropriate mask technology using electron beam exposure, and ultra-precise techniques to expose photo resist on substrates using these masks in a proximity mode with an X-ray photon source. Nothing like this on this size scale has been done before, and the availability of this kind of technology would constitute a significant breakthrough with certain implications for the study of physics, biological scale structures, and new electronic device concepts.